New Reactions and Strategies in Synthesis

The focus of this research may be divided into five areas. First, asymmetric synthesis methodology involving pseudoephedrine as a chiral auxiliary will be developed. Second, the syncytium-forming inhibitor terpestacin will be synthesized. Third, the HIV protease inhibitor L-696,474 will be prepared. Fourth, new synthetic methodology will be developed for the synthesis of allenes, for the reductive transposition of allylic alcohols, and for the production of radicals from alcohols for use in deoxygenation and cyclization reactions. Fifth, methodology for the the sequencing of polypeptides and proteins from the carboxyl terminus will be developed. With this prior award, the Synthetic Organic Program is supporting the research of Dr. Andrew G. Myers of the Department of Chemistry at the California Institute of Technology. Professor Myers will focus his work on the development of a wide variety of synthetic methods that will provide new tools for the elaboration of important organic molecules.